PostDoctoral Research Fellowship

This award is made as part of the FY 2016 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Liam T. Solus is "Combinatorial Convex Geometry of Real-Rooted Polynomials." The host institution for the fellowship is the Royal Institute of Technology in Stockhom, Sweden, and the sponsoring scientist is Petter Branden.

This award was supported with funding from the Office of International Science & Engineering.